Infinite Dimensional Lie Algebras, Quantum Groups and their Applications

The research is focused on the representation theory of quantum

groups at roots of 1, on invariants of 3-manifolds with flat

connections, and on some aspects of statistical mechanics. Quantum

groups emerged from the study of integrable models in quantum

field theory. These models though quite simplistic relative to

their realistic counterparts, exhibit properties which are hard to

study using conventional methods. Another class of simplistic but

extremely interesting quantum field theories are topological

quantum field theories. In these theories the "dynamics" is absent

and all they "know" in the topology of the "underlying

space-time". The theories provided new topological invariants.

"Physical" formulation involves integration over the infinite

dimensional space of connections, mathematical formulation

involves representations of quantum groups. One of the major

directions of the project is to reconcile two approaches. Another

direction of research is related to random discrete surfaces and

related structures such as random partition, random tilings of a

plane, random spanning trees on a planar graph etc. Some of the

questions in this direction are closely related to the limit when a

topological quantum field theory known as Chern-Simons theory

turns into a topological string theory.

Part of the project is focused on the

study of quantum groups at roots of unity. The goal is to

investigate the category of generic modules as a monoidal category

fibered over the corresponding group, and when it is the case, as

as a braided monoidal category fibered over a braided group. The

results will be applied to construct and study invariants of

3-manifolds with flat connections. This direction is closely

related to the possible relation between the A-polynomial and

Jones invariant of knots, which was discussed in the literature in

the last few years. The research will also be focused on dimer

models and on related models in statistical mechanics. For

example, the limit shapes for the 6-vertex model may have singular

boundaries, and one of the goals is to study the fluctuations such

singularities.